Collaborative Research: Computing Dynamics of Multiparameter Systems

The language and ideas of dynamical systems theory that have been developed over the last century have become ubiquitous in the applied sciences. While the analytic language of differential equations and maps is still the basis for most quantitative descriptions of scientific ideas, current scientific
results are often obtained based on models which are not derived from first principles, for which many of the essential parameters have not been measured, and which often involve stochastic terms. The key objective of this project is to develop scalable computational techniques to provide correct robust information about global dynamics over large ranges of parameter values. Bifurcation theory implies that the cost for robustness is a coarse description. However, the fact that scientists and engineers are using numerical simulations of phenomenologically derived models to further their understanding of dynamic processes indicates that the information these techniques provide must be both quantitative and qualitative. Since the study of systems over broad ranges of possible parameter values produces
considerable information, to be of practical use these methods must organize this information in an efficient, queriable manner. We expect the work proposed in this project will produce (1) reliable computational tools for global decompositions of dynamical systems by constructing a database in
which the global dynamics is encoded in combinatorial and algebraic structures and (2) efficient methods for querying the database to identify dynamical structures and bifurcations of interest.

This work will address the fundamental question of determining global decompositions of dynamical systems over varying parameters. The global dynamics is stored in the form of a database based on calculations for deterministic systems, but within the framework of these computations we will also explore how to predict the effects of noise on the observable dynamical behavior. These computational techniques will be tested on and applied to a variety of problems from mathematical biology. The biological models
which will be considered are used to address central questions in biology including the role of the spatial environment in ecology and evolution and the robustness of the dynamics of signal transduction/gene regulatory networks. These activities will produce computational tools for global decompositions of dynamical systems, which will be made available to scientists and engineers for potential applications in a wide variety of disciplines.